"The EC School and Workshop on Connecting Fundamental Physics and Cosmology; Cambridge, England; August 16-27, 1999"

The School and Workshop on Connecting Fundamental Physics and Cosmology
will take place at the Isaac Newton Institute for Mathematical Sciences in
Cambridge, England August 16-27, 1999. The School and Workshop will
endeavor to renew and enrich the important relationship between cosmology
and theoretical elementary particle physics, especially string theory.
Both graduate students and more senior scientists will participate.
Possible insights into cosmology from studies in string theory, and into
string theory from observations in cosmology, will be explored. This
School and Workshop can serve to promote progress in both these very
timely areas.